Quality Improvement Studies for the Industry R&D Survey

9317747 Scarr This action provides for four separate tasks directed toward measuring and improving the quality of information generated by NSF's annual Survey of Research and Development in Industry. The tasks are: 1) Compensating for Nonresponse; 2) Evaluation of Quality; 3) Scope, Frame Construction, and Sample Design and; 4) Evaluation of Mail-out and Follow-up Materials. A fifth task, Effects of Implementing Survey Changes, is also funded under this action. Under authority granted by the National Science Foundation Act of 1950, NSF collects and disseminates descriptive economic statistics, as well as other pertinent information, about scientific and technological resource utilization and activities. Data collected by the Survey of Research and Development in Industry, when used in combination with data obtained through other NSF statistical and analytical activities, provides policy makers with an overview of R&D funding and performance in the United States.